Collaborative Research in Chemistry Conference; November 2-4, 2003; Washington, DC

This conference award to Daniel G. Nocera, MIT, and Gregory H. Robinson, University of Georgia, is supported by the Chemistry Collaboratives and Special Projects Program. Nocera and Robinson will organize and host a meeting of the investigators currently funded by the Collaborative Research in Chemistry (CRC) Program. The goals of the meeting are to discuss multidisciplinary/interdisciplinary research and training issues and discuss best practices for international collaboration, publicity, and project evaluations. A workshop report will be produced and widely disseminated.